Design of Computationally Efficient FIR Digital Filters

This research is concerned primarily with the development of techniques for the design of computationally efficient digital filters. A concomitant secondary aim is to develop design techniques that utilize filter structures which are more attractive to fabrication using very large scale integrated (VLSI) digital circuit technology. New computationally efficient algorithms and structures for digital signal processing with a reduced number of arithmetic operations will be pursued. The investigation of four problem areas are planned to accomplish these overall objectives. These involve the generalization of a design procedure which implements a transfer function as a cascade of a filter section with a sparcer impulse response, a differential coding scheme which permits multiplications with minimal add and shift operations, and a number of computer-aided optimization techniques for filter design.